Mathematical Sciences: Differential Equations, Probability and Applications

Work supported by this award will cover broad areas of mathematical analysis directed at problems arising from mathematical physics, liquid crystals, fluid dynamics, free boundary problems and differential geometry. The core of the research is in partial differential equations and systems of ordinary differential equations. A distinctive feature of this grant is its support of the ongoing postdoctoral and visitor program at the Courant Institute of Mathematical Sciences. The institute provides a unique opportunity for young mathematical scientists to gain new insights into the applicability of their researches, a tradition at the institute since its inception. The vast number of U.S. mathematicians who have been imprinted by the CIMS spirit as students, postdocs or visitors is unmatched anywhere else. Probably even in the world. Much of the present work will focus on nonlinear equations. One class of problems concerns the question of monotonicity of solutions of nonlinear second order equations in prescribed directions. This type of problem arises in the analysis of flame propagation in cylinders. In a different direction work will also be done to determine whether there exist periodic solutions to vector-valued ordinary differential equations with a time periodic forcing function. Additionally, the classical sine- Gordon equation has been used by mathematicians to provide examples of solitary waves as solutions of relatively simple nonlinear equations. It has been suspected that solutions which decay at infinity (called breathers) are nonexistent. Techniques necessary for the resolution of this problem are probably now developed to the point where an answer can be expected in the short term. Work will be done toward this goal.